MRI/RUI: Acquisition of GC/MS and Water Quality Monitor to Support the Integration of Research and Courses in Environmental/Analytical Chemistry into the Undergraduate Curriculum

With support from the Major Research Instrumentation (MRI) Program, Dorota Abramovitch and Thomas Kozel of Anderson College will acquire a gas chromatograph with mass spectrometric detection that will be used to support the integration of research and courses in environmental/analytical chemistry into the undergraduate curriculum. Anderson College is an undergraduate institution. The PIs will establish a research effort in analytical biochemistry that will involve undergraduates and emphasize environmental and green chemistry. One project involves monitoring the chemistry, flora and fauna of a local creek acquatic ecosystem. Eventually, they plan to carry out water, sludge and soil analyses for organic contaminants and heavy metals. The instrument will also be used in a number of courses.